Intergration of Computers Across the Chemistry Curriculm

The chemistry faculty at St. Louis Community College at Meramec is integrating computers into all aspects of the first two years of the college curriculum. To accomplish this goal, fifteen modern PCs have been added to the program. Furthermore, this addition is occurring with corresponding adaptation of the methods described in "Computer Interfacing in the Chemistry Laboratory, by King Weyh, and Pavia. One of the general chemistry laboratories is networked with 12 PCs, one PC for the instructor, and one printer. Two computers are networked into the organic chemistry laboratory. Software is used to operate the existing departmental spectrometers, pH meters, and digital thermometers. Additionally, the PCs are used for the purposes of molecular modeling.

The integration of computers takes place across the chemical curriculum for the introductory chemistry course, Fundamentals of Chemistry, through the two-semester General Chemistry sequence and into Organic Chemistry. Students use the PCs to increase computer literacy, to acquire data in the laboratory, to analyze data, and to visualize and explore the chemical world.